Refinement of Upper Triassic-Lower Jurassic Radiolarian Biostratigraphy

This planning grant seeks support for examination of Upper Triassic and Lower Jurassic rocks from Baja California to document the location of the Triassic/Jurassic boundary, illuminate issues of terrane provenance, and calibrate zonations with those of other fossil groups. Research will provide PI with first independent NSF support and allow her to resume a research career interrupted by several years with industry and other activities. Proposed work will increase her competitiveness with subsequent proposals.